The Digital Atheneum: New techniques for restoring, searching, and editing humanities collections

IIS-9817483
Seales, William B.
University of Kentucky Res Fdn
$499,924 - 36 months

The Digital Atheneum: New techniques for restoring, searching, and editing humanities collections

This work will develop new digital libraries from aging and damaged
portions of the Cottonian Collection at the British Library, tailored
to the requirements of scholars in the humanities.
The result of this project will be state-of-the-art technical approaches,
tools that incorporate those new approaches, and a widely distributed digital
library of restored, previously inaccessible manuscripts.
In particular, the technical focus will encompass the following important
research areas:
o Continued development of new illumination techniques for damaged and
aging manuscripts using novel lighting methods to make it possible to
recover markings and information that would otherwise be invisible
o Creation of a semantic object model and framework for creating digital
collections that will support domain or data-specific restoration and
content-based search/access
o Incorporation of novel processing techniques for digitally restoring,
enhancing, and searching/annotating manuscripts that have suffered damage
from fire, water, and aging
The project has strong support from IBM through the Shared University
Research (SUR). Likewise, partnership with the British Library provides
priviledged access to high-quality collections, manuscript and curator
expertise, and digitization facilities.